Workshop on Future Research Directions in Circuits, Systems and Signal Processing; May 4-5, 1990; New Orleans, LA

Research in Circuits and Signal Processing since l960's has contributed to developments in many areas such as filter (analog and digital) design, processing of signals (one- and multi-dimensional), VLSI architectures for signal processing and computer aided analysis and design tools for integrated circuits. The field is now at cross-roads with many researchers looking at various problems, some new ones and some that have been around for a long time. This one-of-a-kind workshop is being held to identify problems/topics that are relatively new and or worth investigating and topics that are mature and or may not lead to significant breakthroughs.